International Planning Visit for US-Korea Undergraduate Research in Smart Materials

This project will initiate international education and research partnerships with Korean universities in the field of smart materials and systems. The planning visit will support the PI and two undergraduate students to visit KAIST and KIMM.

This project will provide international collaborative research and education opportunities to US undergraduate students.